Quality Museum Exhibits Through Cooperative Activity

The Exhibit Research Collaborative is a consortium of eight science centers whose purpose is to develop and produce eight exhibits that will circulate among the participating institutions and that potentially will travel to other science centers. Apart from the exhibit aspect the project also has as a related purpose the training of the staffs of the participating institutions. The present project represents a second phase of the collaborative effort.